Reconstructing the Glacial Thermocline at Little Bahama Bank

9402804 Curry Funds are provided that would allow the Pis to continue their study of reconstructing the thermocline at Little Bahamas bank for another year. Two new cores will be added to the bathymetric transect at Bahamas, and the sampling frequency for the deglacial interval in high sed rate cores will be increased. The additional year will also allow the Pis to extend the partially completed South Atlantic record. ***